Lie Groups

Abstract
Wolf

The investigator proposes seven intertwined research projects, all on the
interface between group theory and geometry. For the most part these
proposals are geometrically motivated approaches to specific problems in
modern harmonic analysis connected to the representation theory of semi-
simple Lie groups. The first is an approach to construction and analysis
of singular unitary representations of real reductive Lie groups, in two
steps: (i) geometric construction of those representations, as Frechet
space representations on cohomology of homogeneous vector bundles over
flag domains, and (ii) transforming the representation space to a space of
functions on a Stein manifold defined by a system of differential equations,
by means of a double fibration transform (the complex Penrose transform
is a particular case) from the flag domain to its linear cycle space. The
second project is an approach to construction and analysis of unitary and
other representations for a class of infinite dimensional Lie groups, the
direct limits of finite dimensional Lie groups, especially strict direct
limits of finite dimensional real and complex reductive Lie groups, both
in the analytic category and in the algebraic category. The third project
is to complete the investigator's work on the Harish-Chandra Schwartz space
of a general semisimple Lie group, by synthesizing structural analyses of
the relative Schwartz spaces. The investigator's fourth project is to
extend the notion of Dirac cohomology to a notion of partial Dirac
cohomology so that it applies to all the representations of a semisimple
Lie group that appear in the Plancherel formula. The fifth project is to
extend the investigator's isospectral group method from the setting of
spherical space forms to the setting of locally symmetric Riemannian spaces.
The sixth project is to investigate certain restrictions of discrete series
representations to a class of subgroups of great geometric interest. And,
seventh, the investigator will continue his development of a method for
direct reading of the character and growth properties (asymptotics) of
admissible representations of finite dimensional real reductive Lie groups
from the basic data that specify their construction on cohomology spaces of
homogeneous vector bundles over flag domains. One goal here is to do this
in such a way that is directly applicable to the first and second projects.

These seven research projects all depend on the use of symmetry to clarify
analytic (and in one case geometric) problems. Traditionally symmetry
considerations are used to simplify matters by decreasing the number of
variables, but here they are used to enable the use of insight, tools and
results from geometry and analysis. The symmetries are embodied in group
theory, which is the algebraic abstraction of the notion of symmetry. But
modern Lie group theory incorporates classical analysis (calculus,
differential equations...) and is closely tied to the geometry (Riemannian,
symplectic, Kaehler, ...) of the configurations on which the groups act as
symmetries. An important aspect of this synthesis of geometry and analysis
is a geometric form of quantization that is particularly well suited to the
sorts of finite dimensional groups considered in several of the projects.
This geometric quantization, originally inspired by physics and developed
in some detail by mathematicians, has in turn been very useful in a variety
of settings in mathematics and physics. This is very much the case in six
of the seven projects, where the geometric quantization is combined with
modern differential geometry to understand various analytic problems. This
is especially evident in the first and fourth projects, whose objectives
can be viewed as a sort of dequantization.